SGER: Lagrangian Measurements in a Hydrothermal Plume

The westward propoagation and dispersion of a large hydrothermal plume that resulted from recent hydrothermal vent activity on the Juan de Fuca Ridge will be studied by deploying three isobaric floats. The floats will be deployed at 1700 dbars and tracked for a year.